Cautionary Paradigms for Engineering Design

Human error has been identified as a major cause of failure in engineering designs ranging from simple structures to complex systems. A model of how errors are introduced into the design process will provide not only insight into an often neglected aspect of design theory and methodology but also an understanding of how errors may be reduced in future designs. Paradigms based on classic examples of design error and error avoidance constitute a most effective means of approaching the problem of failure due to human design error will be developed. By basing paradigms on actual case studies, the human element can be naturally incorporated and caveats made relevant to practicing designers. Since the concept of failure provides a unifying theme for all components of the design process, paradigms based on cogent case studies of failure and failure avoidance also present a means of unifying the large mass of past design experience into a coherent structure. Furthermore, by distilling design principles from the paradigms, the lessons learned in one engineering domain will be more easily transferrable to others. This will enable design theorists, practitioners, and students alike to have access to a uniquely broad base of experience and examples. The hypothesis that general design paradigms can be based on specific case histories will be tested by demonstrating that a wide variety of other case studies exhibit the same design error or error avoidance principles. The supporting case studies will be drawn from several historical periods to demonstrate that the design principles embodied in the paradigms are truly timeless and independent of the state-of-the-art. The case studies will also be drawn from a range of engineering domains to demonstrate the validity of the hypothesis for design generally and thus to demonstrate the universal applicability of the paradigms.